Personal Protective Technology for Emergency Responders Critical Needs for Critical Missions - Task Order #38 (DHHS/CDC/NIOSH)

Personal Protective Technology for Emergency Responders Critical Needs for Critical Missions